Collaborative Research on Farm-Level Decisions in The Face of Global Warming

Developing valid predictions of the likely impacts of human response to global warming requires a realistic set of assumptions about the process by which humans react to global warming. These assumptions must incorporate knowledge about human limitations in information processing and learning. This project aims to develop a theoretical framework that can serve as the basis for such a set of assumptions by focussing on agricultural decisions. Specifically the project examines the relationship between individual(farm-level) decisions about production and management versus perceptions about weather and climate, especially perceptions about changes in climate(i.e., global warming.) These studies will also investigate the set of conditions that provide for optimal learning, i.e., best usage of climate (and climate change) information, and thus also have prescriptive implications.